Participation in an International Conference

9615642 This proposal is to fund partial travel expenses for seven U.S. researchers to participate in an international conference on Computational Heat Transfer. The Conference is organized by the International Centre for Heat and Mass Transfer and will take place in Cesme, Turkey in May, 1997. A wide range of disciplines will be represented, including mechanical and aerospace engineering, chemical engineering, atmospheric and oceanographic science, physics, mathematics, and computer science.